Studies of Chemical Rates Processes by Means of Size and Charge Resolved 2D-NMR

In this project, supported by the Physical Chemistry Program of the Chemistry Division, Prof. C. Johnson of the University of North Carolina at Chapel Hill will conduct research in the area of diffusion-ordered two-dimensional nuclear magnetic resonance spectroscopy. This research will be devoted to the development of techniques and instrumentation, and their applications to chemical exchange effects, binding equilibria involving surfactants and macromolecules, and micelles and micellanes. Work will also be done on the continued development of mobility-ordered two-dimensional nuclear magnetic resonance spectroscopy with special emphasis on electrokinetic studies and data analysis for the diffusion and mobility of vesicles ranging in size from 50 to 200 nanometers. %%% The relaxation rates observed in nuclear magnetic resonance spectra of condensed media are affected by frictional effects determined by the sizes and shapes of molecules as they undergo translational and reorientational motions in the medium. The recently developed technique of diffusion-ordered two-dimensional nuclear magnetic resonance spectroscopy allows the identification of molecular components of mixtures and the simultaneous characterization of the sizes of aggregates and other structures present. Using a variation of this technique, mobility-ordered two-dimensional nuclear magnetic resonance spectroscopy, one is able to identify and determine the mobilities of ions in condensed media. The research by Professor Johnson serves to improve on these methods and extend them into the three dimensional domain.